The L.E.A.P. 2013 Teacher Workshop

This award supports the bi-annual teacher workshop of the Lowell Educational Astronomy Program (LEAP). LEAP is a science enrichment and outreach program for 5th-8th grade Navajo and Hopi children and their teachers. The program pairs astronomers with teachers for one year. The astronomer visits the classroom throughout the year, leading astronomy discussions and hands-on activities in collaboration with the teacher. The astronomer also holds star parties at the school and involves tribal educators in presenting traditional astronomical knowledge. The year-long partnership culminates in a field trip to Lowell Observatory in which the students visit the Observatory's Steele Visitor Center during the day and observe on two research telescopes at night.